New Frontiers in Antarctic Marine Biology Symposium

This proposal will support a symposium entitled "New Frontiers in Antarctic Marine Biology" at the 2020
Society of Integrative and Comparative Biology (SICB) meeting will be held 3-7 January in Austin,
Texas. SICB has approximately 3000 members whose research interests span a wide range of biological
topics and their annual meetings are widely advertised and attended. Topical areas will include, among
others, the recent dramatic ecological impacts of climate changes across multiple trophic levels in
Antarctic seas, advances in molecular and physiological aspects of cold adaptation in marine algae,
invertebrates, and fish, the role of chemical ecology in structuring nearshore macroalgal-mesograzer
interactions in communities of the Antarctic Peninsula, revising phylogeographic patterns in Antarctica in
the age of 'omics,' and advances in the use of biogeochemical markers to track diets and movement of
Antarctic marine predators.

The unique marine environment of Antarctica provides an exciting opportunity to showcase a broadly
based symposium on aspects of the biology of its rich and diverse marine life. Not only are the topics in
the proposed symposium timely and to be presented by leaders in the field, they will encompass cutting
edge science, novel techniques, and future directions. The presentations will be of pertinence to biologists
(graduate students, post-docs, and research faculty) working in temperate and tropical marine
environments, as well as polar marine environments